SGER: US-Japan Collaborative Studies of Submarine Mariana Arc Volcanoes

This project will utilize a scheduled JAMSTEC cruise that includes 10 research dives to the Mariana volcanoes. Two primary objectives of this research cruise are to understand 1) the evolution of the IBM forearc during subduction initiation, and 2) the igneous and hydrothermal activity of the active modern submarine arc. This work will investigate the submarine volcanology, hydrothermal activity, and sulfide mineralogy of several active and dormant volcanoes in the southern Mariana Arc (eg., Tracey, E. Diamante, NW and W Rota, and Zealandia). A broad band ocean bottom seismometer instrument package is likely to be deployed on the NW-Rota-1 for 10days. Rock samples will be collected for future petrographic analyses.

Broader impacts:
This project provides a strong international collaboration between US and Japanese scientists and thus promotes cross scientific exchange within the IODP. It involves 7 US scientists and students from four universities, including two female scientists. The project will assist the research of three graduate students, and provide them a hands-on opportunity for sample collection and direct exchange with an international team of scientists.